Workshop on the Mechanics and Materials of Contact:Issues and Opportunities; to be held July 18-20, 1994, NAshville, TN

9412501 Hahn Partial support is provided for a workshop on the current issues and opportunities in mechanics and materials of sliding and rolling contact. Active researchers from the tribo-materials field and from the contact mechanics field will bridge the gap between the two approaches to the same general topic, will define the most promising future areas of research and development, and will explore joint research topics. ***